Mathematical Sciences: Asymptotics Beyond All Orders

This grant is for an international conference on asymptotic expansion and perturbation theory to be held in January 1991 at San Diego, CA. The title of the conference, Asymptotics Beyond All Orders, refers to a small but significant class of problems in which conventional asymptotic methods provide no information at any order of the expansion. Problems of this nature are unusual, but not impossible: examples are known in hydrodynamics, plasma physics, crystal growth, and quantum mechanics. Several of these problems in widely different fields have been solved recently, using several apparently different methods. What the different methods of solution have in common is still largely unexplored. The purpose of this conference is to convene the principal participants in this nascent field for an in-depth comparison of their problems and their methods of solution.